Comparative Welfare Entitlements Dataset II

This project seeks to extend and significantly expand the Comparative Welfare Entitlements Dataset (CWED) to create CWED II. Among other things, CWED II will: (1) expand the coverage of the existing CWED data to 24 countries over 40 years (1972-2011), including information on ten new, regionally diverse, and mostly middle income countries; (2) provide new information about programs that support working mothers, dual-income families, and that assist women in traditional roles of social reproduction, e.g., care-giving; (3) provide information (for all country-years) about the replacement rate values of public pensions 5 and 10 years after initial retirement; and (4) develop a user-friendly web interface that allows researchers and the general public to choose specific features of the dataset "a la carte," and to create simple visual displays of the information.

Data generated by the project will be used by the PI to evaluate several theoretical questions, including the impact of political partisanship on policy, long-term effects of incremental policy changes, the distributional implications of welfare reforms, and convergence between welfare states in wealthy and middle-income countries. Existing data sources only permit comparison of program spending, while program entitlements for individuals (and their distribution) are generally acknowledged by the research community as superior indicators of substantive social policy output and impact.

Several factors suggest that social insurance entitlements observed have changed markedly in the last decade. First, reforms to welfare state programs from the 1980s and 1990s were structured to be implemented over time. Whether or not such reforms were completed or reversed can only be completely observed after 2002. Furthermore, structural change and economic competition from countries with much less generous social policies have accelerated in the last decade, placing added pressure on developed countries to reform. Second, by adding ten middle-income countries, the project will produce new comparative observations from countries that confront very different structural and political contexts than the rich countries included in current analyses of program structures. No comparable dataset contains any information about welfare state institutional structures in non-advanced countries, let alone the breadth and historic depth of information that the PI proposes to collect.

The collection and dissemination of CWED II is a large social science data collection project, intended to benefit the social science research community. CWED II measures will be a large source of the kinds of measures that are generally preferred by comparative social policy researchers, but in very short supply. The dataset will enable researchers across social science disciplines to evaluate a variety of explanations about the social drivers and impacts of different features of welfare state policies during the last 40 years. Combined with already existing data on social program spending, such as the OECD Social Expenditure project, CWED II will result in an unprecedented depth of comparable information about social insurance policies, enabling scholars and policymakers to trace welfare states both in terms of their resource commitments and their institutional ones. CWED provides unique information about the structure of social insurance policies that has proven, and will continue, to be of interest to scholars in multiple social sciences. An important aim of the project is to provide the dataset to the research community in a timely manner. CWED II data will also be useful for educators, policymakers and the press as a tool for seeing, and comparing the diverse array of social protection arrangements in other developed democracies with those in the United States. In this way and others, CWED II will be a valuable tool to inform debates about the future of American social policies, from social security to parental leave.